Nonparametric Bayesian Modelling

Nonparametric Bayesian Modelling

Nonparametric Bayesian models are motivated by the desire to more realistically
model data. They provide a means of escaping the strictures of parametric
models, while, with their Bayesian nature, they allow the incorporation of some
information about the process under investigation. These philosophical
advantages translate directly into superior performance for the models, which
have had a particularly strong showing wherever random effects are involved.
When these models are used in conjunction with the hierarchical model, they
constitute a powerful modelling tool.

The current state of the art in nonparametric Bayesian modelling allows one to
propose and fit models, and a limited amount of work has been done on selection
of a model from some small set of candidate models. The greater field of data
analysis in this context is almost untouched. The reason for this is that the
current set of models do not allow for a sophisticated data analysis: the
iterative process of proposing a model, assessing its fit, developing a
modification of the model to improve its fit, and reducing the model if no
substantial improvement in fit is found. The main focus of this work is to
formulate and implement sophisticated nonparametric Bayesian data analysis.

To accomplish the above goal, this research proposal identifies five areas
where nonparametric Bayesian models currently either perform poorly or cannot
be used in a satisfactory, general fashion. These areas are (i) examination
of the relationship between covariates and response (ii) assessment of the fit
of a model (iii) combination of information from related experiments (iv)
modelling distributions with outliers and (v) working with small to moderate
sample sizes.

In the proposed research, the author will develop models that will show strong
performance for each of the above problems. The first class of models,
dependent nonparametric processes, move beyond current models which are aimed
at providing a description of a single random distribution. They provide a
means of modelling a collection of random distributions which exhibit strong
local dependence and long-range independence. This feature of the model makes
it ideal for (i) - (iii) above. The second class of models, contaminated
models, directly targets the departure from a parametric model in a clear,
easily interpretable fashion. This type of model is ideal for describing
distributions that contain outliers, and its close proximity to a parametric
form will yield small sample performance that is nearly equivalent to the
parametric model, providing an approach to problems (iv) and (v). Additionally,
the two types of models may be freely combined, resulting in a single, coherent
approach to all five problems. The basic theoretical properties of the models
will be investigated, the computational strategies needed to fit the models
will be devised, and the models will be applied in a variety of settings.
Throughout, the emphasis of the research will be on the development of sound
data analytic strategies so that the theoretical and practical advantages
of nonparametric Bayesian modelling can be realized.